Arithmetic and Representation Theory of Reductive Groups over Local and Global Fields

Abstract for NSF-award number DMS-0400640 of Prasad

Abstract: Gopal Prasad's primary focus has been study of reductive Lie
and algebraic groups--mostly on problems which have either geometric or
number theoretic origin. He has been investigating questions about certain
interesting subgroups, for example, arithmetic subgroups or other large
(Zariski-dense) subgroups which arise in geometry or number theory. It
would be important to determine all normal subgroups of these groups. Over
interesting fields like local and global fields, there are conjectures of
Kneser-Tits and Margulis-Platonov which provide a description of normal
subgroups. These conjectures have been settled in the affirmative for many
class of groups. However, there still remain some very interesting groups
for which these conjectures are open. Prasad plans to study these groups.
For arithmetic groups, the famous "congruence subgroup problem" is the
question whether any normal subgroup of finite index contains a congruence
subgroup. The most successful approach to settling this problem has two
parts: (1) Computation of the "metapectic kernel". (2) Centrality of the
congruence subgroup kernel. A very precise computation of the metaplectic
kernel for all groups has been done in Prasad's joint work with
M.S.Raghunathan and A.S.Rapinchuk. On the other hand, the centrality of
the congruence subgroup kernel is still unknown for some important class
of groups. Prasad's goal is to investigate these groups and also find a
conceptually better proof of the centrality in the known cases. He will
continue his collaboration with A.S. Rapinchuk on this project. Another
topic on which Prasad will work on is the representation theory of
reductive p-adic groups. Prasad has been interested in classification of
irreducible admissible representations where his goal is to obtain a
classification in terms of theory of "types". A begining in this
direction, for general reductive groups, was made in his joint work with
Allen Moy--the geometric techniques which they introduced in
representation theory have turned out to be very useful. Prasad plans to
continue his research towards classification of admissible
representations.

The set of symmetries of many geometric and number theoretic objects form
a group. For studying these geometric and number theoretic objects, it is
important to study their groups of symmetries. Prasad has been studying
problems related to these groups and their subgroups. These problems have
number theoretic or geometric origins and therefore their solution will
have important applications to these areas. Prasad proposes to work on the
Kneser-Tits and Margulis-Platonov problems which provide conjectural
description of normal subgroups; both the problems have been settled for a
large class of groups but some challenging cases remain open. Prasad also
proposes to continue his work on the famous congruence subgroup problem
where he and his collaborators Raghunathan and Rapinchuk have made many
important contributions. In another direction, Prasad proposes to work on
the representation theory of reductive p-adic groups. Representations of
these groups arise naturally in various contexts and their study is an
important component of the Langlands program in modern number theory. The
geometric methods which Prasad and Allen Moy introduced in the area have
turned out to be very useful. Prasad proposes to refine these methods to
give a complete classification of all admissible representations.